Gas Phase Manufacture of Particulates in Aerosol Reactors

This research is an experimental and theoretical study of the interplay of reaction kinetics (both homogeneous and particle surface controlled) with aerosol dynamics (particle growth, coagulation, migration, and deposition) in aerosol reactors and the influence of these factors on product powder characterization. Special emphasis will be placed of the effect of dopants on the size distribution of the resulting particles. As a case study, production of titanium oxide powders formed by the oxidation of halide vapors in a furnace reactor will be investigated by FTIR spectroscopy, near real time aerosol sizing, and microscopy of captured particles. Aerosol reactors are used in manufacture of carbon blacks, pigments, powders for advanced ceramics, and lighwave guides. Current design of such reactors is largely empirical. This research should help put the design of such reactors on a firmer basis and lead to greater quality control of the powder produced.